International US-Argentina Collaborative Research on Confined Fluids

0124087
Cole

This Americas Program award will support Dr. Milton W. Cole of the Pennsylvania State University Park in collaboration with Dr. Susana Hernandez of the University of Buenos Aires. The research aim is to predict the behavior of fluids in confined geometries. These include films, carbon nanotubes and porous media. The emphasis will be on quantum fluids but some attention will be given to classical fluids as well.

The research effort will bring together successful research groups with the U.S. side contributing their expertise in forces and statistical mechanics associated with physically absorbed film, while the Argentina side will contribute their expertise in many-body theory to treat quantum films, clusters, and their excitations.

***